Integration of the UNIDATA Scientific Data Management System Into the Undergraduate Meteorology Curriculm

Computer hardware and software will be acquired to run the Scientific Data Management (SDM) system for meteorological data access and analysis developed by the UNIDATA Project Center. The SDM system is an essential element in achieving the major objective of this project - the incorporation of the methodologies of computerized data analysis into the meteorology curriculum at Kean College. Today's meteorology students need experience with these methodologies, and they require the means for efficient access to current data as well as new types of information to be available in the near future (i.e. NEXTRAD, profilers, and improved satellite capabilities). These curriculum revisions are necessary to adapt our undergraduate program to the evolving technological developments in the field of meteorology. The curriculum revisions will include new approaches to teaching using computerized data analysis and the development of a range of case studies and student exercises to reinforce the new methodologies. Coexisting with the revision of the meteorology curriculum will be evaluation and assessment of its impact on student learning. Evaluation of the curriculum objectives will be accomplished through a variety of standard means, as well as through specially designed assessment instruments as part of the existing program assessment effort at Kean College. In addition to the curriculum objectives, the SDM system will provide improved access to data for faculty research in neural network approaches to local forecasting and mesoscale modeling, as well as for student research projects. It will also enhance our ability to share data with local high schools and other colleges in the area.